PYI: Algorithms and Applications

This project focuses on sequential as well as parallel algorithms for constrained optimization and computational geometry. One of the goals in the area of constrained optimization is the application of recent developments in convex optimization to non-linear membrane and plate problems in mechanics. Interior point methods in optimization are studied further in order to obtain better solutions/heuristics for (hard) integer programming problems. Research in computational geometry with a special emphasis on problems defined on a set of points in high dimension is conducted. Such high dimensional problems arise routinely in classification, pattern recognition, vision, and speech recognition. A typical problem in this class would be developing a practically workable data structure for near neighbor search. In particular, all known data structures that achieve a sub-linear worst-case query time, require an astronomical amount of storage and preprocessing. This project investigates how techniques in computational geometry may be used to obtain better algorithms for solving large scale linear systems arising in the context of partial differential equations.